MPWG: GIST: Girls in Science and Technology

This program is addressing the lack of participation in science, engineering, and math endeavors by rural middle school girls, and should serve as a model for programs in rural settings throughout the nation. It will provide rural Mississippi girls with hands-on experiences with computer hardware and software, a nurturing environmental in which to build problem-solving skills, a network of other girls interested in SEM studies, and exposure to a variety of female role models who are pursuing SEM careers. Program activities feature an intensive weeklong stay on the University of Mississippi campus; monthly programs at the girls schools continuing through the school year; electronic mentoring form university women in computer science, and a capstone weekend back on campus. A complementary program for teachers will emphasize the need for gender equity in science and math teaching; and establishing a support network of middle school teachers and university faculty committed to inspiring girls to succeed at SEM Major program goals are that: participants will understand SEM concepts, and develop improved critical thinking abilities and problem-solving skills through cooperative, discovery- oriented activities, participants will gain self confidence in their science and mathematics abilities and their overall competence, participants will be motivated to participate fully in science, engineering and mathematics education and to consider SEM careers, and teachers will develop contacts, and revitalize and recommit their efforts to promote gender equity in SEM at their schools Significant spill-over effects should be expected on other groups: teachers who participate along with the girls; families of girls involved in the program, and other girls at the participating schools.